Molecular Genetic Studies of Neurogenesis in Drosophila

Early neurogenesis in Drosophila establishes neural and epidermal cell lineages from an apparently homogeneous ectodermal population. Recent molecular and genetic evidence has demonstrated that this process is regulated by a small number of zygotic genes, termed the neurogenic loci. One of these genes, "mastermind (mam)," has not been well characterized in terms of how it functions and interacts with the other neurogenic loci. The specific aims of this research will be to 1) localize mam mRNA and protein on the cellular and subcellular levels throughout development, as an aid to understanding function; 2) examine the genetic interactions between mam and other loci, determining the sequences of interesting mam mutations that affect the other loci; and 3) sequence alternative transcription products of mam to determine whether the gene codes for more than one protein, and to detect possible homologies to previously characterized molecules in invertebrates and vertebrates.